Homotopy Theory of Commutative Algebras

9972546
Turner
The central focus of this project is to translate the methods and
technology of the homotopy theory of spaces to the realm of algebras and
then apply them back to questions in the homotopy theory of spaces. The
approach is to view algebras themselves as special cases of simplicial
algebras. In this larger category, there exists a homotopy theory and
notions of homotopy groups and homology groups, depending on the type of
algebras considered, which are homotopy invariants. Restricting to
(simplicial) commutative algebras, the resulting homology theory is called
Andre-Quillen homology, which has proved useful for both commutative
algebra and topology. In particular, understanding when this homology
theory vanishes has implications in both commutative algebra and topology.
On the commutative algebra side, conjectures of Quillen indicate that the
vanishing in high degrees of the Andre-Quillen homology of Noetherian
algebras, over a Noetherian ring, implies the homology must vanish above
degree two. It is the intent of this project to resolve this conjecture
and its implications for commutative algebra. On the topological side,
obstructions to the existence of a topological space with given mod p
cohomology, as an unstable algebra over the Steenrod algebra, lie in
certain Andre-Quillen cohomology groups of that unstable algebra. This
project will also investigate finding conditions for those obstructions to
vanish as well as relating other aspects of the Andre-Quillen cohomology
to the homotopy of that space, if it exists.
Central to studying topological spaces is the theory of their homotopy
type, which can be understood using the methods provided by algebraic
topology. These methods involve assigning to spaces algebraic invariants,
called homotopy, homology, and cohomology groups, whose internal structures
help discern the internal structures of the original topological object. A
dual perspective can be developed whereby the methods of homotopy theory
can be used to study algebras on their own grounds. In particular, there
is a (co)homology theory, called Andre-Quillen (co)homology, for commutative
algebras that has proved useful to both commutative algebra and topology.
The goal of the present project is to understand under what conditions this
homology theory vanishes, either locally or globally, and the implications
for commutative algebra and topology. For example, one focus will be on the
implications for commutative algebra of the global vanishing of Andre-Quillen
homology in high degrees. Under certain special conditions, it is known that
such a vanishing implies that the imputed commutative algebra has the very
special feature of being a type of algebra called a local complete
intersection. Part of the present project is concerned with determining the
implications of such global vanishing under a weakening of these special
conditions. On the topological side, the cohomology of a space can be viewed
as a commutative algebra. One question that arises is: when can a given
commutative algebra be realized as the cohomology of a space? An answer can
be given in terms of certain elements in the Andre-Quillen cohomology of the
given commutative algebra: the space is realizable if and only if these
elements vanish. Another goal of the present project will be to understand
these obstruction elements and the conditions under which they vanish as well
as relating other aspects of the Andre-Quillen cohomology to the homotopy of
that space, if it exists.
***